Spatial and Temporal Changes in Arsenic, Iron, and Sulfur Speciation in a Shallow Aquifer

0409203
Peggy A. O'Day
The chemical speciation of arsenic in sediments and porewaters of aquifers is the critical
factor that determines whether dissolved arsenic accumulates to potentially toxic levels.
Although we have a general understanding of the biogeochemical cycle of arsenic, there remains
a large gap in our quantitative understanding of the mechanisms of transformations, the role of
iron and sulfur, and the dynamics of natural processes that mobilize arsenic in the environment.
We lack detailed measurements that allow us to quantify seasonal impacts on subsurface arsenic
speciation, and the rates at which speciation changes in response to surface infiltration from
rainfall and vertical fluctuations in water table depth. Using a combination of field, laboratory,
and modeling efforts that employ both molecular and macroscopic methods, we will study
arsenic mobility and natural attenuation at a site near San Francisco Bay as a model system.
These studies will address the following: (i) How do seasonal variations and changes in water
table as a response to storm events influence subsurface arsenic geochemistry, and thus the
mechanisms and rates of arsenic uptake or release? (ii) Does the formation of metastable, mixed
valent iron phases, Fe(II,III) hydroxides (green rust) play an important role in controlling
arsenic attenuation and release? How is the formation and stability of labile iron phases
influenced by storm events and tidal flooding? (iii) Through molecular and macroscopic
modeling based on field and laboratory observations and data, can we predict local changes in
dissolved arsenic and iron concentrations in response to seasonal changes in water table and to
storm events? We will employ X-ray absorption spectroscopic methods, complementary bulk
and spatially resolved geochemical characterizations, hydrologic observations, and molecular
and macroscopic modeling to address these questions at different scales.
Intellectual Merit: Our work will address the mechanisms by which arsenic is attenuated or
mobilized in the environment through identification and understanding of its chemical
speciation. This study will also begin to address the more difficult question of the rates of
arsenic transformation and mobilization in the field, and link temporal changes to mechanisms
identified at molecular and microscopic scales. This comprehensive approach will advance
fundamental understanding of arsenic speciation and mobility, particularly with respect to little
known seasonal fluctuations and field rates of uptake and release.
Broader Impacts: Worldwide, elevated concentrations of arsenic in groundwater, a known
carcinogen and mutagen, has the potential to adversely impact on the order of 90 million people,
including 13 million in the US. This study will seek mechanistic, thermodynamic, and kinetic
understanding of arsenic mobility in the environment. Our approach seeks to scale results from
molecular to macroscopic and thus, our observations at this model study site will be generally
transferable to other subsurface settings.
The P.I. has recently moved to the University of California at Merced, the first UC
campus to be built in over 35 years. This research proposal will serve to advance both graduate
and undergraduate education at our fledging campus, which seeks to serve underrepresented
groups in the agricultural San Joaquin Valley. In addition, our collaborators for this project
come from industry and a national laboratory, providing opportunities for undergraduate summer
internship programs and collaborative work with graduate students.